A Digital Thermometer to Enhance High Resolution Borehole Paleothermometry at Siple Dome and Beyond: a Unique Opportunity

0087273
Waddington

This award supports the development and testing of digital probes
for high precision temperature measurements in boreholes in polar
ice sheets. These measurements are key to obtaining calibrated
paleotemperature records in the polar regions.
The current state-of-the-art system is the USGS Polar Borehole
Temperature Logging System (PBTS), which uses analog probe technology
with the electronic package at the ice sheet surface. Strong winds can
disturb the recording electronics, forcing the field team to modify
logistics plans to produce high quality data. Probes that transmit
digital signals up the cable would not be affected by these surface
conditions, improving the efficiency of field operations. This project
will adapt a recently-designed digital probe for use with the PBTS system
in cold temperatures in polar drilling fluids. These probes will reduce
some of the stringent hardware and procedural requirements of the current
analog system. These new digital probes will be calibrated alongside the
currently used sensors and will be tested at Siple Dome as part of an
already-funded program of borehole temperature logging. The final product
(in addition to a working borehole temperature logging system with new
digital probes) will be a publication in the Journal of Glaciology
describing the new probes, the comparisons, and the new research
opportunities that digital probes can offer.